Thermal Science and Control Systems Laboratory Development

The primary objective of the proposed project is to provide a laboratory experience for undergraduate engineering students in two new courses: ECS 312 Feedback Control Theory, and ECS 344 Thermal Systems. (These courses are required of all engineering majors at Trinity College.) This is being accomplished using a state-of-the-art remotely controlled 6- Pass Heat Exchanger and LabVIEW software with A/D interfacing. Students in Feedback Control Theory are developing a closed loop control system with a Macintosh Microcomputer that is already on hand and available for use. Students in Thermal Systems are using the equipment to study basic concepts involved in heat transfer and thermodynamics. The proposed equipment is also exposing the students to basic transducers and electronics, as well as computer controlled data acquisition. Currently, there is no engineering laboratory equipment at Trinity that would be appropriate for use in these new courses. This is a severe shortcoming of the engineering program that must be redressed.The project is also providing students with independent research and senior design projects, required of all engineering majors. It is providing unique collaborative opportunities for mechanical and electrical engineering students, such as the development of data acquisition and control software and its use in the analysis of heat exchanger performance.The proposed equipment is also being used to introduce non-engineering students to the basic principles of heat transfer, thermodynamics, and computer controlled equipment in two recently developed introductory technology courses. These courses are aimed at encouraging students to pursue science and engineering careers and to develop a quantitative understanding of technology.The equipment is also being used to attract Greater Hartford Area minority middle and high school students to engineering through the Connecticut Pre-Engineering Program (CPEP). Trinity College has participated in CPEP for the past 6 1/2 years by sponsoring Saturday and summer science courses for these students.